Environmental Mental Sociology

This is a travel award for a trip to England to visit faculty and examine facilities at the University of London and Oxford and Cambridge Universities. These visits are to identify the best match of interests and appropriateness of library holdings in preparation for a postdoctoral study program. Initial contacts have been made with faculty, who have expressed an interest in serving as postdoctoral mentor. This travel award will enable the investigator to meet with the various professors and make a choice of the program best suited to her goals. Initial discussions of formal arrangements for a postdoctoral appointment will also be held.